Structure and Dynamics of Multicomponent Polymeric Systems

9870785 Fredrickson This is a theoretical grant in polymer science. The focus is on the time-dependent structural evolution properties of multicomponent polymeric systems. Projects will include (1) macromolecular solution templating and (2) stress- concentration coupling and phase separation kinetics of linear/branched polymer blends. In each area, the proposed research is designed to elucidate fundamental knowledge that will guide practical macromolecular materials design, optimization, and processing. This theoretical program will be coordinated with experimental activities underway at Santa Barbara and Minnesota. %%% This is a theoretical grant in polymer science. The focus is on the time-dependent structural evolution properties of multicomponent polymeric systems. Projects will include (1) macromolecular solution templating and (2) stress- concentration coupling and phase separation kinetics of linear/branched polymer blends. In each area, the proposed research is designed to elucidate fundamental knowledge that will guide practical macromolecular materials design, optimization, and processing. This theoretical program will be coordinated with experimental activities underway at Santa Barbara and Minnesota. ***